Science and Technology of Canals and Inland Waterways

The Hugh Moore Historical Park and Museum will develop an integrated framework of exhibits on the science and technology of canals and inland waterways at the National Canal Museum (NCM) in Easton, PA., which will serve as a model for interdisciplinary public education and exhibit programs at other canal history organizations in more than 28 states, primarily east of the Mississippi River. Representatives from major waterway and industrial history sites and museums across the nation will work with NCM staff and a national advisory panel of leading informal science educators to develop, design and disseminate a series of interactive science exhibits that can travel or be replicated in museums, parks and organizations that interpret inland waterways and related industrial sites